Field Testing of an In-Situ Incubator to Explore the Limits to Life in Submarine Hydrothermal Systems: Active Sulfide Deposits as Natural Laboratories

This project is the initial development of an in-site sensor package designed to quantify spatial and temporal variations of environmental parameters within submarine hydrothermal systems. A prototype sensor will be developed that includes a titanium-sheathed, porous, multi-chambered prove that will allow in-site recording of temperature within the interior of active submarine hydrothermal sulfide chimneys. The ultimate goal is to explore the actual limits to life in vent systems and to define the conditions under which different species or consortia thrive, survive, or expire.